NER/SNB: Investigation of Nonlinear Nanophotonics in Low-Threshold Nanomaterial Optical Interconnect Switches

The objective of this research is to investigate active nanoscale optical interconnects,
based on nonlinear photonic crystal nanocavity switches. Active optical interconnects
form the basis of a reconfigurable flow of information on CMOS microelectronic chips,
with ultralow latency, ultrahigh bandwidth, low power dissipation, and high-density
integration feasibilities. The approach is based on silicon nanocavities for immediate
CMOS compatibility, with insertion of nonlinear nanomaterials or nanopatterned
materials to achieve ultralow switching thresholds and high-speed operations. The cavity
designs will take advantage of photonic crystal nanolattices for strong field enhancements
and material interactions. All-optical switching through Kerr nonlinearities will also be
explored. Theoretical designs and concepts will be investigated via full three-dimensional
finite-difference time-domain simulations, and devices will be fabricated and
characterized at Columbia.
In terms of broader impact, this exploratory program addresses several of the core issues
for continued CMOS VLSI scaling. It is thus of general interest for engineers and
scientists active in optical data communication and silicon microelectronics. The program,
in addition, will support the interdisciplinary training of students in nanophotonics for
these industries. Moreover, the program will participate in the Columbia Undergraduate
Research Opportunities Program (UROP) and will partner with the NSF/Columbia NSEC
Nanoelectronics and MRSEC Nanomaterial programs with the support of one summer
undergraduate research experience. A university-wide seminar series on Nanophotonics
will be developed for the Fall 2005 semester, targeted at first-year graduate students and
undergraduate seniors, and a series of follow-on activities involving local K-12 students
will be developed.